Microfracture and Repeated Plastic Deformation in Unsaturated Soils as Influenced by Surficial Properties

***
9978672
Lytton
This project is to determine how empirical strength and plastic deformation
properties of unsaturated soils are related to more fundamental physical,
chemical, and thermodynamic properties of the soil particles, water, and salts
dissolved in the water. The more fundamental properties referred to are the
Helmholtz surface energies, wetting and dewetting angles, solute
concentrations, particle size gradations of the soil particles, and the
volumetric concentrations of soil, water, and air. These are expected to
underlie the fracture and healing properties of the unsaturated soil and
explain the logarithmic work hardening, yield, and plastic potential
characteristics of the soil under repeated loading. To the knowledge of the
research team, there has been little done in the past to make use of the
connection, which has been recently established in polymers, between the
viscoelastic characteristics of a soil, the Helmholtz surface energies, and the
rate of change of dissipated "pseudo-strain" energy in the fracture of that
soil. In addition, it has recently been discovered that under repeated
loading, the rate of change of dissipated pseudo-strain energy explains the
plastic work hardening of a composite material like an unsaturated soil. It is
the purpose of this proposed project to explore these connections in
fine-grained unsaturated soil to see if the same connections can be made. It
is also proposed here to determine the effect of the osmotic water potential on
the fracture and plasticity properties of a soil. The osmotic potential is
related to the concentration of organic or inorganic salts dissolved in the
pore water. A major effect of the concentration of solute in pore water is to
alter the wetting or dewetting angle. It is known that some salts will
increase and other salts will decrease the wetting angle and thus will have a
distinctive effect upon the strength of the soil.

What makes the measurement of these properties possible is the recent
acquisition at Texas A&M of a German-built Universal sorption apparatus and the
recent construction of a triaxial unsaturated soil stress path cell with
unusually broad capabilities. The first equipment makes it possible to measure
all of the components of the Helmholtz surface energies: the Lifshitzvan der
Waals apolar components and the Lewis acid and base polar components. The
second item of equipment makes it possible to make carefully controlled tests
on unsaturated soils while measuring all components of mechanical stress and
strain and all components of the water potential over larger ranges than have
been achieved with similar equipment in the past. The final unique capability
that fits these two test apparati together is the ability recently developed at
Texas A&M to analyze the test data to determine the dissipated pseudo-strain
energy with each load cycle.
***